East Coast Computer Algebra Day, at Drexel University, Philadelphia, PA.

9413113 Char The purpose of this meeting, held at Drexel University, Philadelphia, PA on May 14, 1994, is to stimulate interest in and enhance understanding of the technical aspects of computer algebra. The meeting will encourage those in the region who are active or interested in becoming more active in computer algebra to meet with each other in an inexpensive and easily accessible way. Participation by the region's graduate students will be particularly encouraged through special invitation to contribute to the poster sessions, and through travel support. The meeting has been endorsed by the ACM's SIGSAM (Special Interest Group on Symbolic and Algebraic Manipulation). ***